Mathematical Modeling of Induced-Charge Electrokinetics

Bazant
0707641

The investigator develops timely new mathematical models for
nonlinear "induced-charge" electrokinetic phenomena, where
electro-osmotic flows or particle motions are driven by electric
fields acting on induced double-layer charge at polarizable
(metal or dielectric) surfaces. The investigator and his
colleagues have worked for five years on a unified theory of such
effects, as well as related experimental studies in microfluidics
and colloids. In spite of a number of successes in predicting
new types of flows, however, the existing theory fails to predict
some crucial features of the experiments, such as flow reversal
at high voltage and flow suppression at high concentration. The
theory is based on the classical Poisson-Nernst-Planck equations,
which are strictly valid only for "small" voltages (< 25 mV), but
experiments typically involve much larger voltages (> 1 V), which
condense counterions near the surface and violate the dilute
solution approximation. The investigator builds a mathematical
theory for this regime by modeling steric and correlation effects
due to ion crowding, nonlinear permittivity and viscosity of the
solvent, and Faradaic reactions. The theory is tested against
experiments and applied to design new microfluidic devices.

This work has fundamental relevance for nanotechnology and
biotechnology. Induced-charge electro-osmosis (ICEO) is a
recently identified nano-scale phenomenon with many applications
in microfluidics and colloids. Because ICEO can be exploited to
manipulate fluids and particles with battery voltages, it could
enable revolutionary new portable or implantable biomedical
devices, such as tiny drug infusion pumps and diagnostic
labs-on-a-chip. The mathematical work of the investigator seeks
to advance our understanding of ICEO flows, especially in
biological liquids, by exploring consequences of molecular
crowding on the dynamics of electrolytes near highly charged
surfaces.